Research Experiences for Undergraduates: Modeling, Analysis, and Control of Engineering Systems

Boston University's Manufacturing Engineering Department is establishing a REU site to provide support for undergraduates to participate in research in the area of modeling, analysis, and control of engineering systems. The program emphasizes flexible manufacturing systems, robotics, and process control. The plan of operation includes: recruitment, selection process, management, support groups, other resources available, and the expected research projects.